Workshop Program for Dissemination of Calculus Reform Projects

This project continues a series of week long workshops for teachers of calculus. Common features of workshops in this sweries: review the concerns that gave rise to the calculus reform movement; summarize the common themes that characterize the thinking of those who lead the reform movement; enable participants to get a comprehensive overview of the materials, developed in many different projects, now available for their consideration; are led by people who have had hands on experience in the developing of a particular project, and are willing to share what they have learned about student and colleague reaction without pushing their particular materials; and help participants to plan a level of involvement appropriate to their own situation.